Quality Control in Seismic Design Construction

Construction compliance with design intentions is an important consideration in earthquake hazard mitigation and is often inadequate. Noncompliance with requirements specified in construction drawings appears most pervasive in light residential construction and other building types. The advances in code provisions for seismic hazard mitigation are therefore not fully realized, resulting in reduced public safety and economic loss to society. Yet the frequency and severity of noncompliance with hazard mitigation code provisions is not well documented and remainsto be quantified. The proposed research will: 1) conduct surveys to identify the frequency and severity of noncompliance with design intentions for seismic force hazard mitigation in Type V light wood frame construction, and 2) develop a system of classification and quantification on construction noncompliance that can be used to establish quality control policies and identify a plan of action.